Quantitation of Peptide Oxidation Kinetics

9309569 Lumpkin The commercialization of therapeutic proteins and peptides has been impeded by molecular stability problems. Oxygen, metals, and reducing agents in bioprocessing media combine to cause irreversible damage to biomolecules via metal-ion catalyzed oxidation (MCO). Metal-affinity based separations are important new techniques in bioprocessing where MCO reactions are important. The rate constants and parametric sensitivities of MCO reactions have not been studied under industrially relevant conditions, and reactive peptide sequences have not been identified. The objective of this work is to develop a quantitative understanding of MCO damage through the development of a kinetic model of peptide oxidation. ***